Mathematical Sciences: Research into the Arithmetic of Function Fields

Professor Goss will work on a number of topics in the arithmetic of function fields in characteristic p, including: the cohomology of motives, L-series attached to motives, and the analogues in this setting of the classical gamma function and rings of divided power series. This research is work in the Algebraic Geometry of finite characteristic. Although the field originated with notions of continuously varying geometric structures like lines and planes, in this context the Discrete takes over, and methods akin to those from the theory of whole numbers are most useful. Reciprocally, the algebraic geometry of finite characteristic is now having great influence on the Theory of Numbers, and is finding application in Computer Science and Coding Theory.